Internal Mixed Convection

Mixed convection in a pipe or an annulus aligned with the direction of acceleration (vertical direction under normal gravity) is unstable. The flow pattern and transition differ significantly from those for an isothermal flow. Experimental evidence indicates that the pipe flow is supercritically unstable for an aiding mixed convection while it is unconditionally stable to infinitesimal disturbances for an isothermal flow. This problem has received very little attention in spite of its practical importance. A three-year project is proposed to study this phenomenon analytically and numerically. Convection driven by the acceleration due to gravity in the presence of a temperature difference can be an effective and useful mechanism to transfer heat if the appropriate scales for length and time are not too small. This is particularly true in rapidly rotating machinery, in which the centrifugal acceleration can be 105 times larger than the gravity acceleration; consequently, the buoyancy effect due to density stratification must be considered.